ScienceMakers: African Americans and Scientific Innovation

The ScienceMakers: African Americans and Scientific Innovation is a three-year project designed to increase awareness of the contributions of African American scientists, raise awareness of STEM careers, and increase understanding of STEM concepts through the creation of education, media, and career resources. The project team is supplemented with an extensive advisory board of STEM education, museum, and community professionals, as well as representatives from partnering science centers. Project partners include the St. Louis Science Center, Liberty Science Center, New York Hall of Science, Pacific Science Center, Franklin Institute, COSI Columbus, Lawrence Hall of Science, SciWorks, Detroit Science Center, and MOSI Chicago. Additional collaborators include middle and high schools with high minority populations.

Project deliverables include a fully accessible multi-media archive of video oral histories of 180 African American scientists and web resources and contests utilizing Web 2.0 and 3.0 applications such as social networking tools that foster engagement and build community around the ScienceMakers. Public programs for youth and adults at science museums, after-school programs, and community organizations highlight African American contributors, and encourage interest in science and science careers and the ScienceMakers DVD Toolkit expand the reach of this innovative project. Intended impacts for youth and adults consist of increased awareness of STEM concepts and career options, exposure to African American scientists, awareness of the contributions of minority scientists, and 21st century skills. Intended impacts on professional audiences include increased awareness and understanding of STEM careers and workforce diversity, 21st century skills, and STEM career options.

The project evaluation, conducted by Knight-Williams Research Communications, utilizes a mixed-methods approach. The evaluation assesses the impact of the oral history archive, public programs, and other deliverables on public and professional audiences' knowledge, interest, and awareness of the contributions of African American scientists, STEM concepts, and STEM careers. The evaluation also includes an ethnography which examines factors that contribute to success in STEM careers by African-American scientists.

The ScienceMakers significantly expands the world's largest searchable oral history archive and may have an enduring impact on research and practice in the field of informal science education. The project has the potential to enrich programs and exhibits, while raising awareness of the contributions of African-American scientists among informal science education professionals and the general public.